An Undergraduate Computer Graphics Laboratory

This equipment funded for this project supports a new upper- level computer science course in graphics at this institution, a course that serves as the capstone course within a graphics programming concentration. In addition, the lab equipment serves a the primary support for a senior level mathematics course in fractals and chaos. The laboratory that supports these projects includes Sun color graphics workstations, a printer and plotter and various pieces of graphics software. This award is being matched by an equal sum from the grantee.